"1995 Gordon Research Conference on Atomic Physics; Brewster Academy; Wolfeboro, New Hampshire, July 3-7, 1995

9508068 Greene This grant is for support of students and young researchers to attend the 1995 Gordon Conference on Atomic Physics at the Brewster Academy. This meeting continues the tradition of dealing with emerging areas of research and major advances in atomic physics in an informal setting including leading specialists, students and young researchers as participants. ***